NSF Young Investigator

9357518 Reich This is an NSF Young Investigator Award. The research will investigate the fundamental physics of materials at low temperatures. Focus will be on low-dimensional and other systems dominated by geometrical constraints. These include low- dimensional quantum antiferromegnets, arrays of superconducting rings, and superconducting granular composites. %%% This is an NSF Young Investigator Award. The research will investigate the fundamental physics of materials at low temperatures. Focus will be on low-dimensional and other systems dominated by geometrical constraints. These include low- dimensional quantum antiferromagnets, arrays of superconducting rings, and superconducting granular composites. ***